Studies of Infrared Luminous Galaxies

SOIFER, Baruch AST 96-16924 Dr. Soifer will study infrared luminous galaxies. The goals of this project will be to understand how the strongest starbursts evolve by studying the closest high luminosity starburst systems, also to explore the relationship between starbursts and non-stellar power sources in the most luminous of these systems and to probe the evolutionary connection between interacting galaxies and AGNs. The projects will be based on infrared observations using the Palomar and Keck telescopes for spectroscopy and for imaging selected samples of infrared luminous galaxies.